Investigating Bonding Symmetry on Surfaces and at Interfaces Using Perturbed-Angular-Correlation Spectroscopy

9403210 Catchen This is an interdisciplinary program to investigate bonding symmetry on surfaces and at interfaces using perturbed-angular- correlation spectroscopy. The investigations will use the indium- lll radioactive PAC probe to measure nuclear electric quadruple interactions on well characterized semiconductor surfaces of gallium-arsenide and related compounds produced by molecular beam- epitaxy (MBE). In addition, interactions at strained interfaces will be investigated, within as-grown and annealed low-temperature gallium arsenide, and epitaxial metals deposited in-situ. These experiments can produce information on: (1) the strength and symmetry of bonds between probe and surface atoms, (2) the thermal stability of various semiconductors and metal surface sites, (3) the kinetics of indium-lll probe diffusion and redistribution at semiconductor-semiconductor and semiconductor-metal interfaces, (4) the local strain at the indium-lll probe in pseudomorphic materials, (5) the interaction of these probe atoms with point defects in the crystals and the evolution of those interactions with annealing, and (6) magnetic hyperfine fields and the character of surface magnetism in epitaxial magnetic-metal films. % % % % This is an interdisciplinary program to investigate chemical bonding symmetry on surfaces that are prepared by molecular-beam epitaxy. Surfaces of gallium-arsenide semiconductors and related compounds, and interfaces between surfaces of dissimilar but related crystals such as the interface between gallium-arsenide surface and an indium arsenide surface will be investigated. The work will be extended to the investigation interfaces between gallium arsenide and various magnetic metals. The study also will include epitaxial growth under non-optimal and non-equilibrium conditions. The investigations will use a nuclear technique known as perturbed-angular-correlation (PAC) spectroscopy. The technique involves measuring the interactions of ra dioactive probes, which are deposited during crystal growth, with the effect of local electric field and magnetic fields in the vicinity of these radioactive probe nuclei. The indium-lll isotope will be the isotope of choice. ***